REU SITE: Undergraduate Biology Education Research Program

The Undergraduate Biology Education Research (UBER) REU Site engages undergraduates in studying important issues specific to the teaching and learning of biology, with mentorship from faculty in the Division of Biological Sciences and the Mathematics and Science Education Department at the University of Georgia. The goals of this nine-week summer program are to develop undergraduates' knowledge and skills in biology education research, encourage undergraduates to pursue doctoral study of biology teaching and learning, expand the diversity of the talent pool in biology education research by strategically recruiting and mentoring underrepresented and disadvantaged students, strengthen and expand collaborations among faculty and students in education and life sciences, and contribute to the development of theory and knowledge about biology education in ways that can inform undergraduate biology instruction.

A programmatic effort to introduce undergraduates to the discipline of biology education research is unprecedented nationwide. Biology education research as a discipline is quite young, and systematic involvement of undergraduates has not been part of the culture or practice in biology or education. UBER aims to promote cultural change that expands the involvement of undergraduates in biology education research and raises awareness among undergraduates that biology teaching and learning are compelling foci for study that can be pursued at the graduate level and via various career paths. UBER utilizes a combined strategy of broad and strategic recruiting to attract underrepresented minority students as well as students who do not have access to biology education research opportunities at their own institutions. Evaluation plans involve tracking UBER participants over time to understand the trajectories of students who complete undergraduate training in biology education research.

Significant co-funding of this project is provided by the Division of Biological Infrastructure in the NSF Directorate for Biological Sciences in recognition of the importance of educational research in the discipline of biology. The Division of Undergraduate Education and the Division of Research on Learning in Formal and Informal Settings also provides co-funding.